National Science Foundation - Division of Design and Manufacturing Systems Grantees Conference; Charlotte, North Carolina; January 6-8, 1993

This award is to conduct the annual grantees conference of the Division of Design and Manufacturing Systems. By encouraging interaction between the grantees of this Division, the Engineering Research Centers Division and some of the grantees of the Computer Information Science and Engineering Directorate, this conference ensures that the individual researchers are informed about the ongoing activities of their colleagues. An elimination of duplication of their efforts may be achieved and a degree of cooperation may result from this activity. An overall improvement of efficiency of the research activity could be expected. In addition, the conference program organization allows for ample time to discuss manufacturing research in detail with the collective research community at the meeting, with feedback and input from the National Science Foundation. Finally, personal contacts with the grantees and program officers in the Divisions should contribute to clarifying many current problems in their work. Principal investigators attending the conference usually gain a one to two year lead on the information disseminated; this is the usual time frame for materials presented at the conference to be published in journals and other literature.